Symposium on Acoustic Communication in Anurans and Insects, to be held in Los Angeles, CA December 27-30, 1993

9307634 Doherty A one-day symposium entitled "Acoustic Communication in Anurans and Insects: Common Mechanisms in Behavior, Neurophysiology and Evolution" will be held as part of the national meeting of the American Society of Zoologists, December 27-30, 1993. Frogs and insects can be quite similar in their modes of sound communication. In both taxa, males produce sounds that elicit a response in other males or in potential female mates. These responses may be sounds or movements towards or away from the sound source. There is clear convergence in the research methods used by scientists studying the physiological and evolutionary mechanisms of acoustic communication in frogs and insects. This symposium will bring together researchers in anuran and insect sound communication to identify similarities and differences in the behavioral, neurophysiological and evolutionary mechanisms of acoustic communication in anurans and insects. Topics will include chorusing and signal interaction, signalling energetics, behavioral and neural mechanisms of sound recognition and localization, heritability and sexual selection. This symposium should build several new bridges between researchers studying these separate zoological taxa and lead to future research efforts that synthesize and build upon the work of all investigators of animal sound communication.